Methodology For Analyzing Spatial Data

Recently, considerable interest has begun to focus on
spatial data problems. The statistician finds an exciting
opportunity to expand the current analytical repertoire,
which is dominated by descriptive summary and ad hoc inference
procedures. Bringing formal stochastic modeling and the
resultant full inference which becomes available, to the
analysis of spatial data becomes attractive. Fully model-based
approaches offer challenges both in supplying a sufficiently
flexible framework and fitting models within such a framework.
The proposed research considers three such challenging problems.
They are (i) the handling of misaligned data layers which arises
when there is interest in relating variables which are collected
from different sources and these sources use different areal
partitions of a region, (ii) the handling of bivariate (and, more
generally, multivariate) spatial processes arising for the
observed data or as latent (second stage) processes in a
hierarchical model, and (iii) the handling of large spatial
datasets within the so-called "geostatistical" perspective
which, using first or second stage Gaussian specifications,
presents a likelihood whose evaluation requires high-dimensional
matrix inversion.

Spatial data arises in many fields of application. For instance,
in ecology and evolutionary biology, investigation of the process
of deforestation is an important area. Such a process inherently
exhibits spatial pattern which evolves over time and hence connects
to federal strategic interest in environmental and global change
(EGCH). It is of interest to use socioeconomic information in
addition to physical features of the land area to understand this
process. In financial/real estate applications it is of interest
to index residential propery values. The familiar maxim, "location,
location, location" anticipates spatial association in housing prices.
In epidemiology one seeks to identify spatial patterns/clustering of
disease incidence in order to assess areas of high risk. Incidence
rates have to be adjusted to reflect differences in population
size and exposure to risk factors. In all of these applications
simple descriptive summary of the collected data will not be adequate.
Rather, one needs to make inference, e.g., to assess which factors
explain the deforestation, to predict the price of a home when it
goes on the market, to conclude that a particular area is at a
significantly higher risk for a particular disease. The research
under this grant support proposes the use of probabilistic modeling
to address these questions. Appropriate specification of, fitting
of and drawing inference under such models are the objectives.